Travel Support for Graduate Students to Attend ICAPS09 Doctoral Consortium

This award gives travel, housing, and registration-cost support to selected doctoral students from U.S. universities for their participation in the Doctoral Consortium of the 19th International Conference on Automated Planning and Scheduling (ICAPS-09) held September 19-23 in Thessaloniki, Greece. ICAPS is the premier conference for research in artificial intelligence planning and scheduling, with relevance to a wide variety of applications such as software engineering, manufacturing, transportation, and robotics. The ICAPS-09 Doctoral Consortium includes a poster session, where students present their research, and a mentoring program that pairs senior scientists with doctoral students.